RUI: "Trading and Portfolios in Behavioral Economics"

Investors lacking inside information know that insiders trade in the stock market. So, why do those lacking this information bother to trade? Even money managers seem unable to "beat the market". So, why do they continue to try, and why do their clients continue to pay for their services? Further, how do individuals structure their portfolios and why are portfolios typically not fully diversified? Why do investors prefer particular positions such as covered call-options? These are some of the central questions in the area of behavioral finance that this project will address. The standard theory in finance is based on the assumption of the "rational man" who attempts to maximize expected utility as he chooses among investment alternatives. However, standard finance-theory offers no compelling answers to these questions. This project will develop and test a finance model which incorporates psychological factors and provides a clearer understanding of individual investment and financial-market behavior. The model will include errors of cognition, regret, and the framing of choices. The functioning of securities markets has been the focus of much debate recently. A major issue is the role of government in regulating these markets. Should laws prohibiting insider trading be strengthened or abolished? Should the small investor have special protection and if so, how could this be done? This project is important because it will shed light on this issue.